Collision Processes Involving Low-Energy Electrons

The project studies the physics of processes in which slow electrons induce heavy particle motion. The low energy electron motion requires a quantum mechanical treatment, while the heavy particle motion is classical. The focus is on dissociative electron attachment to different targets and in different environments. Targets to be considered include diatomic molecules, polyatomic molecules, clusters, physisorbed molecules, and molecules embedded in a crystal medium. The project will also consider the theory of inelastic and charge transfer processes in collisions of Rydberg atoms with ground state atoms.